Relativistic Quantum Theory and the Interactions of Elementary Particles

This grant in theoretical physics supports the research of Professors J. Sucher and R.N. Mohapatra at the University of Maryland. The work of Sucher will address atomic physics problems including two-photon exchange forces, the relativistic two-body problem, and highly excited states of the helium atom. The research of Mohapatra is concerned with extensions of the standard electro-weak model that will investigate quark condensates and neutrino masses and magnetic moments.